Linking Intermetallics and Zintl Phases: Experimental and Theoretical Studies of Ternary "Trielides"

Abstract DMR-9627161 Miller The role of valence electron concentration (vec = electron/atom ratio) to influence structure is well documented for Zintl phases (valence compounds of electropositive metals with post-transition elements: covalent networks and cages involving two-center two-electron bonds) and Hume-Rothery phases (intermetallic compounds of late and post-transition elements: dense packings involving "metallic" bonds). Zintl phases occur for vec > 4 (based upon the network of post-transition elements) and Hume-Rothery phases are observed for vec ~ 2. To date, there is no systematic investigation of the broad region in vec between these two extremes. Since the two established compound classes show dramatic differences in structural principles and electronic properties, studies involving compounds with vec in the intermediate regime will provide a means of examining the transformation from one class to the other. This research involves the synthesis and detailed characterization of ternary compounds in- volving (i) an electropositive alkaline earth or rare earth metal; (ii) either a late transition metal, i.e. groups 8-12 elements or one of either Li or Mg; and (iii) a group 13 element (Al, Ga, In), called "trielides," in order to probe materials with vec between two and four by tuning the electron count. Synthetic strategies will include high temperature methods (arc-melting) and using metallic fluxes. Products will be examined for their crystal structure, composition, and physical properties. In particular, X-ray and neutron diffraction, electron microscopy, thermal analysis, X-ray photoelectron spectroscopy, electrical resistivity, and magnetic susceptibility measurements will be utilized. Later stages of this investigation will involve the incorporation of boron, carbon, and nitrogen into these intermetallics. In addition to these experimental approaches, theoretical methods will be applied to investigate the valence electron distribution in thes e systems as the vec changes. Specifically, relationships between these solids and molecular analogues, e.g., ranging from metallocarborane deltahedra to Zintl-type anionic cages, will be explored. Semiempirical electronic structure calculations will be used to examine the ternary systems under study, with the aspirations of adapting the LMTO calculations to these complex systems. %%% This investigation represents the first concerted effort of experiment and theory to perform a systematic examination of compounds linking complex intermetallics with complex valence compounds. The ternary compounds in this investigation may show high electrical conductivities coupled with regions of strong covalent bonding. Therefore, these materials may offer potential applications as high temperature metals, or may provide a means of studying either strengthening or embrittlement mechanisms in intermetallics.